International Travel: CODATA Meeting on Phase Equilibrium and Related Property Data; Paris, France; September 4-11, 1985

The Committee on Data for Science and Technology (CODATA) of the International Council of Scientific Unions and the Commission on Thermodynamics of the International Union of Pure and Applied Chemistry (IUPAC) is organizing a series of three International Conferences on Phase Equilibrium and Related Property Data to be held in Paris, France, September 4-11, 1985. Partial travel support is provided for 4-6 participants from U.S. universities to attend these meetings. Participation of top U.S. researchers is helping to maintain direct knowledge of the future trends in experimental methods and measurements of these critical physical properties.